CRB: Experimental Tests of Genetic Management Programs for Captive Populations

Many threatened and endangered species are being maintained in captive breeding populations, as a method for preserving them for later reintroduction to native habitats. Most captive populations have not only been initiated but also maintained in relatively small numbers, so a major concern of captive breeders has been to reduce further erosion of evolutionary adaptability by maintaining maximal genetic variation in the populations. The effects of various breeding programs or even small population size per se on maintenance of genetic variation and/or evolutionary adaptability has not been adequately tested, so we really do not know which breeding programs are best to maintain evolutionarly viable populations. Evidence has accumulated, for example, that traits important to survival and reproduction in a species may be affected by reduced population size in markedly different ways than traits currently being assessed in captive populations. Specifically, using an experimental organism Dr. Bryant will investigate the impact of diverse breeding protocols on the genetic variation, current health, and future adaptability of captive populations. Decisions regarding breeding programs are currently being made that will irreversibly affect the future of endangered species, and this study will provide critical information to make appropriate decisions concerning the welfare of these species.